Dissertation Research: Reproduction and Mating System of Propithecus Verreauxi

The analysis of fecal steroids is a developing technique of potential importance in the field of primate reproductive biology and socioecology. It should allow for the monitoring of reproductive states of animals - whether or not they are ovulating, for example. Coupled with behavioral observations, this technique will enable the formulation and testing of much more sophisticated and incisive hypotheses in the field. This dissertation project is directed by an excellent senior scientist and will involve collaboration and training with a leader in this developing field. It will also provide important information on the ecology and preservation of primates.